AF: Small: Approximation Algorithms for Geometric Optimization

The methodologies of computational geometry will be applied to design,
analyze, implement, and test algorithms for problems that arise in
several application areas, including geometric network optimization,
air traffic management, sensor networks, robotics, geometric modeling,
and manufacturing. The main project goal is the development of
fundamental advances in approximation algorithms for geometric
problems. Additionally, the project will strive to foster and deepen
collaborations with researchers and domain experts in application
areas and industry, in order to formulate their algorithmic needs
precisely and to make available algorithmic tools, insights from
theoretical results, and software from experimental investigations.

The specific repertoire of problems includes: (a) Geometric Network
Optimization: optimal routing and network design in geometric
contexts, including traveling salesman (TSP) variants, vehicle
routing, constrained spanning trees, minimum-weight subdivisions,
optimal route planning with various constraints, and survivable
network design; (b) Air Traffic Management: optimal use of airspace
in the face of dynamic and uncertain constraints induced by weather
and traffic congestion, sectorization (load balancing), and
optimization of flow management structures for the National Airspace
System; (c) Sensor Networks and Coverage: sensor deployment,
localization, data field monitoring, and coverage for stationary or
mobile (robotic) sensors.

The problems will be attacked on two fronts: (1) Use of formal
algorithmic analysis, attempting to prove the tightest possible bounds
(upper and lower) on the worst-case or average-case time/space, or
approximation ratio for the problem; and (2) Development of solution
techniques designed to be simple, fast, and practical, and which are
compared experimentally.